Mathematical Sciences: Microwave Processing of Ceramic Materials

The investigator proposes to model and analyze a class of physical problems arising in microwave processing of ceramics. These problems give rise to challenging nonlinear initial boundary value problems, the mathematical statements of which involve one or more nonlinear parabolic equations, governing the diffusion of heat and the diffusion of a chemical concentration, and the time-harmonic version of Maxwell's equations. These equations are coupled in a nonlinear fashion and, in addition, nonlinear heat balances are required in certain applications where surface temperatures produce significant thermal radiation. The investigator proposes to develop and use asymptotic methods, dictated by certain physical limits, to simplify the mathematical systems and to develop and use numerical methods to solve the reduced problems. The goals of the proposer are twofold. The first is the mathematical understanding of the basic physical mechanisms which make the processes work. Such an understanding would give scientists and engineers involved in microwave processing of ceramics the basic scientific underpinnings by to judge and interpret their experimental findings. The second is the development and application of asymptotic, numerical, and other approximate methods required to obtain an accurate description of more realistic and complicated processes. The successful completion of the proposed research would allow engineers and scientists to design more efficient sintering and joining processes for ceramics which would produce higher quality materials. It would also help in the design and implementation of microwave assisted vapor deposition processes which are highly promising in the construction of composite ceramic materials.